Innovative Solution of Acoustic Field Problems

In this project, the Method of Moments is used to solve the acoustic field problems with mixed boundary conditions. At present, these problems are solved using a combination of finite element method (FEM), and the boundary element method, since no single method can handle both types of boundary conditions (finite and infinite domains). The Method of Moments has been widely used so far for solving both differential and integral formulations of electromagnetic field problems. The simple and flexible nature of the method make it ideally suited for solution of complex acoustic field problems typically encountered in aerospace and automotive systems.*** //